Planning Grant for Restructuring Math Delivery Systems at Fort Belknap College

Planning Grant for Restructuring Math Delivery Systems at Fort Belknap College
The goal of this project is to develop a comprehensive plan for increasing student success in
mathematics at Fort Belknap College (FBC). The college will achieve this goal through the
successful completion of three specific project objectives. During the one-year planning
period, project personnel will: (1)perform a thorough self-assessment of the current math curriculum in place at FBC; (2)conduct an in-depth review of alternative instructional methods, curricula and delivery systems that have proven successful with minority students (and, specifically, American Indians) across the country; and (3)develop a comprehensive planning document for designing and implementing a math program that addresses specific local and institutional needs, while incorporating best practices from model programs. The results of these planning efforts will provide the basis for developing an implementation/design proposal to be submitted under NSF's 2003 TCUP solicitation. Ms. Mary John Taylor, Dean of Academic Affairs, and Ms. Billie Jo Foote, Math/Science Instructor, will serve as co-principal investigators for the project. Fort Belknap College is requesting $50,000 to carry out this project over a 12-month period.
PROPOSAL NO.: 0122968
PRINCIPAL INVESTIGATOR: Taylor, Mary
INSTITUTION NAME: Fort Belknap College
TITLE: Planning Grant for Restructuring Math Delivery Systems at Fort Belknap College
NSF RECEIVED DATE: 04/30/2001